Reduction Methods in Hamiltonian Dynamics, Bifurcation Theory, and Lie Theory of Symplectomorphism Groups

Abstract

Proposal: DMS-9802378
Principal Investigator: Tudor Ratiu

A first goal of this project is to use symplectic reduction theory and
its extension involving singularities to the study of various
mechanical systems and coadjoint orbits of finite and infinite
dimensional Lie groups. In addition, these techniques will be applied
to symmetric Hamiltonian bifurcation theory by combining them with
methods of dynamical systems and classical bifurcation theory methods.
A Lagrangian counterpart of reduction will be developed, where
symplectic geometry techniques are replaced by variational principles.
Applications of these variational methods yield the equations of
various approximate models in geophysical fluid dynamics. A second
goal of this project is to understand completions of diffeomorphism
groups with the scope of applying geometric and Lie theoretical
methods to the study of nonlinear wave equations and the understanding
of the convexity properties of the momentum map in infinite
dimensions. A third goal is the application of methods of Hamiltonian
dynamics in conjunction with singular reduction to study the
bifurcation and the long term behavior of concrete mechanical systems
such as the Riemann ellipsoids. The same methods are intended for the
design and study of numerical algorithms on nonlinear manifolds.

Symplectic methods in geometric mechanics are a powerful tool to
address difficult questions in the dynamics of concrete problems such
as the control of submarine or robotic arm motion, the elaboration of
models for continuum systems such as rods and shells, or the study of
the shape of liquid or gaseous masses ranging from tiny drops to
galaxies. The development of the geometric foundations to attack these
problems as well as their application to several problems comprises
the work to be done on this grant.